The Seismogenic Zone Experiment (SEIZE) Workshop, June 2-3, 1997, Kona, Hawaii

9705564 Moore This grant will support travel for US participants to attend a workshop to identify the best locales and strategy for a large international field program to study the seismogenic zone on convergent margins (Project SEIZE).